Images Degraded by Nonlinear Motion Blurs: Mathematical Models, Algorithms and Applications

This project is concerned with the development of algorithms and
software for the restoration of images degraded by nonlinear and
nonuniform motion blurs. The problems to be addressed by the
investigator and his colleagues include the development of an
appropriate mathematical model for nonlinear motion blurs, analysis of
the ill-conditioning of the blurring process, development of efficient
algorithms for removing motion blur, and development of software for
specific applications. Algorithm and software development is needed
for the solution of large scale, severely ill-conditioned linear
systems that arise in the discrete formulation of these problems. For
nonlinear and nonuniform motion, these systems generally have no
exploitable structure; that is, standard deconvolution techniques that
use fast Fourier transforms are not applicable.

Images used for surveillance, medical diagnostic, and other scientific
purposes are rarely perfect. Imperfections in the imaging system and
environmental effects may result in serious degradations, such as
blurring, in the recorded image. Postprocessing techniques (i.e.,
computational methods) are often necessary to obtain better quality
pictures. Designing appropriate algorithms requires accurate
mathematical modeling of the image formation process, and development
of robust, efficient computational tools. One of the most common
causes of blurring in images is motion of either the recording device
or the objects being imaged. Although linear motion, with constant
speed and direction, is well understood, very little work has been
done to develop mathematical models and efficient algorithms for the
restoration of images degraded by nonlinear and nonuniform motion
blurs. The investigator and his colleagues consider this difficult,
important problem. The software developed through this project can be
applied to many important applications, including medical imaging
(e.g., movement of the heart during cardiac imaging processes), aerial
and video surveillance, forensic investigations, and astronomical
imaging.